Engineering high-performance voltage sensors for optogenetic imaging of neuronal circuit activity

1134416
Lin

Being able to both control and monitor neuronal activity is critical for learning how neuronal
circuits process information and make decisions. However, while powerful tools to control neuronal firing
using genetically encoded light-activated channels have recently been developed, limitations of current
genetically encoded sensors of neuronal activity severely restrict their use for monitoring brain function.
In particular, calcium sensors are slow and cannot report on subthreshold depolarizations. While voltage
sensors could in principle be used to follow fast trains of action potentials and monitor subthreshold
depolarizations, the low dynamic range of existing sensors makes them unsuitable for most experiments
in vivo. Moreover, there are presently no calcium or voltage sensors that are efficiently excited by red
(>550nm) wavelengths, a region of the spectrum that would enable their concurrent use with blue/greenabsorbing
light-activated channels.
The goal of this proposal is to address these needs by developing a new generation of genetically
encoded voltage biosensors with significantly improved dynamic range and speed and the ability to be
used concurrently with light-activated channels. This work will enable finer and more powerful functional
dissection of the nervous system, while also establishing new protein engineering methods. The expertise
of the lab in fluorescent proteins engineering will be leveraged to educate future scientists and engineers
about research in protein engineering, and to introduce educators to the utility of genetically encoded
biosensors for teaching scientific concepts in laboratory courses.

Intellectual Merit
The engineering objective of this proposal is to apply knowledge of fluorescence spectroscopy
and protein structure to quantitatively improve the performance of an existing class of voltage sensors
(Aim 1) and to develop an entirely new class of voltage sensors (Aim 2). In the first aim, we will increase
dynamic range via rational optimization of Förster resonance energy transfer (FRET) between fluorescent
proteins linked to a voltage sensing domain. In the second aim, we will use a conformationally sensitive
red fluorescent protein to report on movements of a voltage sensing domain with rapid kinetics. For both
aims, we will employ rational design combined with comprehensive saturation mutagenesis and screening
of important sites.
This project will be a pioneering study in molecular engineering in two ways. It will be the first to
rationally apply predictions from modeling of Förster resonance energy transfer to identify the factors
limiting the fluorescence output response, and then to perform protein engineering to comprehensively
address those factors. Second, this project will be the first to combine comprehensive screening with
atomic-level structural knowledge of sensing domains and fluorescent proteins in order to create an
entirely new class of allosteric voltage sensors; this research will thus give insight on the relative
usefulness of prior knowledge and screening to the engineering of genetically encoded biosensors.

Broader Impacts
Voltage sensors developed through this project will be promptly disseminated to the larger
scientific community. These sensors will have a broad impact on the field of neuroscience by enabling
robust voltage sensing and concurrent control and readout of neuronal activity. Our work will also impact
the field of bioengineering by validating concepts and establishing strategies for how to optimize the
design of fluorescent protein-based sensors using energy transfer or allostery.
The proposed project will provide an excellent opportunity to introduce undergraduates and high
school students, including students from disadvantaged backgrounds, to research in molecular
bioengineering. It will also provide the opportunity to introduce educators to the use of genetically
encoded biosensing to create exciting laboratory lessons that teach important basic concepts while
demonstrating the results of recent research in protein engineering.